Undergraduate Faculty Enhancement Workshop in FTNMR

A one week workshop on introductory FT-NMR is being held for twelve faculty members. These faculty come from two and four year institutions in a seven state region including Arkansas, Oklahoma, Missouri, Kansas, Nebraska, Illinois, and Iowa. Special efforts are being made to recruit women and minority participants. The workshop consists of lectures, instrument use, and data analysis. Topics covered range from introductory NMR theory to pulse sequences and 2-D NMR. Participants use a JOEL 270 MHZ FT-NMR, purchased with NSF-ILI support, to obtain proton, carbon-13, phosphorous-31, DEPT, COSY, HETCOR, and other spectra. Each participant receives a handbook containing theory, spectra, and specific NMR applications suitable for use in undergraduate laboratories. The participants gain an expanded knowledge of modern NMR techniques and are encouraged to introduce these techniques into the undergraduate chemistry curriculum. A follow-up meeting will be held at the midwest Regional ACS meeting, November 1996. Participants reports on the use of information from this workshop at their institutions will be collected, edited, published and distributed to all institutions of higher education in the seven state region.